University of Washington – R/V Thomas G. Thompson and R/V Rachel Carson Shipboard Scientific Support Equipment (SSSE) 2024

This award provides support for Shipboard Scientific Support Equipment (SSSE) for R/V Thomas G. Thompson, a 274-foot general-purpose, global research vessel, and R/V Rachel Carson, a 72-foot coastal research vessel. Both vessels are operated by the University of Washington as part of the U.S. Academic Research Fleet. This award will enable the acquisition of Keyboard-Video-Monitor (KVM) system controls for both the R/V Thompson and R/V Carson and multiple video monitors for R/V Thompson's computer lab for science and shipboard data systems. KVM systems have become standard on global class vessels in the fleet and valuable for situational awareness on any research vessel. R/V Thompson currently has an IP-based CCTV system that was an item flagged for replacement during a recent ship inspection and will be replaced with an up-to-date reliable system with this request. Finally, CTD operations on R/V Thompson will be improved by acquiring a sled on a track to replace the current accordion system to stage the ship's CTD package. The new system will allow deployment in much higher sea states with a greater margin of safety.

The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 23-525). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance, and operation of shared-use instrumentation allows NSF-funded researchers from any US university or other organization access to well-maintained, high-quality, calibrated instruments for their research. It ensures the collection of high-quality oceanographic data in support of science, reduces the cost of that research, and expands the base of potential researchers.